Oceanographic Instrumentation

0302454
Tesh
This award to Skidaway Institute of Oceanography in the State of Georgia provides instrumentation to significantly improve the oceanographic research capabilities of the research vessel Savannah, operated by SkIO as part of the University-National Oceanographic Laboratory System research fleet. The award supports acquisition of sensors to be used in the vessel's surface mapping system and on its CTD system, as well as two new acoustic Doppler current profilers (1200 kHz and 600 kHz), upgrade of the existing 300 kHz ADCP, a new computer for acquisition and display of ADCP and CTD data, remote data display stations, meteorological sensors, and a liquid scintillation counter. All of these are shared-use capabilities that are available to all funded users of the R/V Savannah. These improvements will be of substantial advantage to marine scientists during 2003 and future years.
***